Heterotrophic Oxidation, Nitrification, Denitrification and Anaerobic Fermentation in a Substratum-Aerated, Biofilm Process for Wastewater Treatment

This research is on a new concept for treatment of wastewater that combines in a single unit, processes that are new conducted separately. The investigator plans to conduct laboratory experiments to validate mathematical models of the individual processes and combinations as steps toward application of this concept in engineering design.